Generation of High-Purity, Controlled-Stoichiometry Binary and Ternary Materials by Gas-Phase Reactions

ABSTRACT CTS-9408876 T. T. Kodas A for phase segregation in reaction-controlled gas-phase particle production routes will be investigated, in order to improve the generation of nanophase multicomponent powders. Three new production routes will be tested: (i) single source precursors, (ii) precursors with matched reactivities, and (iii) reaction between precursors in gas phase to fix stoichiometry. The limits on phase purity, phase segregation, and multicomponent particle size and morphology will be determined. The research approach includes the characterization of the precusors and reactor, gas-phase chemistry studies, aerosol dynamics studies correlated to chemistry, and characterization of the resulted powders. The project is based on an exploratory approach, and may lead to materials with new properties tailored for special uses. Metal alloys and mixed metal oxides with properties unavailable by other routes will be produced, with applications to microelectronics and high-strength coatings.